Iterative Algorithms for the P-Version of the Finite Element Method: Parallel Multi-P

9626202 Katz The p and h-p versions of the finite element method are now firmly established as important methods for finite element analysis (FEA). A major part of the computational burden in FEA is the solution of the assembled system of equations. Current practical problems, particularly those in three (or higher) dimensions, may require the determination of hundreds of thousands, even millions of unknowns. Such problems cannot be solved on serial computers because of excessive computation time and memory requirements. Implementation on parallel processors is indispensable because of time requirements. Iterative methods are indispensable because of memory requirements. Whereas iterative methods for the h-version of FEA have long been the object of much investigation (e.g. domain decomposition, multi-grid), relatively little is known about iterative schemes for the p-version. This research addresses that problem. Multi-p methods can be used independently as smoothers, or as preconditioners for other iterations such as conjugate gradient. The term multi-p processes includes both approaches. This research develops multi-p V cycle methods with particular emphasis on problems in 3D. Parallelization with respect to both computation costs, costs of communication among processors, and costs of using auxiliary memory are considered. The use of multi-p algorithms as preconditioners, which currently shows great promise for 2D problems, is a major area of study. The ultimate objective of the research is to make the p-version of FEA a practical tool for large scale problems. Modern engineering design relies heavily on computer simulations, and specifically on high-performance computing. For example, in structural elastic analysis, it is necessary to solve (sometimes nonlinear) partial differential equations on complicated geometries. To solve such partial differential equations numerically on computers, discretization techniques are used. Such discr etizations may involve thousands or hundreds of thousands unknowns and efficient numerical methods are indispensable. The numerical techniques being developed in this project lead to procedures that assure the reliability of engineering decisions based on high-performance computing. The algorithms being formulated permits solution of (nonlinear) mathematical models in diverse areas including those used in aircraft and automobile structural design, determining elastic properties of the human heart, study of boundary layer effects in composite materials, and fatigue life analysis.